Showcase for NSF DUE CCLI Projects at the ACM SIGCSE Conferences

The ``Showcase for NSF DUE CCLI Projects at the ACM SIGCSE Conferences'' project is allowing recipients of the National Science Foundation's Division of Undergraduate Education Course, Curriculum & Laboratory Improvement Program (NSF DUE CCLI) grants to present their research to the wider computer science education community. These presentations are taking place at the ACM Special Interest Group on Computer Science Education (SIGCSE) Symposium, which is held annually in the Spring. The SIGCSE Symposium annually attracts an average of 1,500 faculty to discuss undergraduate computer science education. The showcase is providing a venue for community building around, and dissemination of, CCLI computer science projects.